GOALI: Collaborative Research: RF Technology for Magnetic Resonance Imaging

0101029
Magin
This Industry/University Collaborative project, a component of the Grant Opportunities for Academic Liaison with Industry (GOALI) initiative, involves faculty and students at the University of Illinois Chicago (UIC) and Texas A&M University (TAMU) teamed with practicing engineers at General Electric Medical Systems (GEMS) as participants in a new research/educational program combining Ph.D. research in RF technology with industrial experience in state-of-the-art Magnetic Resonance Imaging (MRI) systems. The activity is to support development of innovative, collaborative industry-university research and educational programs. Support will be provided for eight Ph.D. students (four at UIC [this project] and four at TAMU [award 0101059]), who will be co-advised by university faculty and industrial scientist/engineers. These students will spend one semester or summer each year doing research at GEMS.

While in residence at GEMS in the Applied Sciences Laboratory, the students will have access to advanced MRI system design and testing equipment and work under the supervision of the industrial Co-Principal investigators, who also will serve as members of the student's Ph.D. advisory committees. Additionally, six senior GEMS engineers/scientists will participate in this project as mentors for the students.

This project is expected to establish a new model for industry/university collaborative research and education programs at the Ph.D. level in MRI engineering.